SURFing the Building and Fire Research Laboratory: A NIST-NSF Partnership.

This award provides funding to the National Institute of Standards and Technology (NIST) for the support of a 5 year REU Site entitled, "SURFing the Building and Fire Research Laboratory: A NIST-NSF Partnership," under the direction of Dr. Christopher White. This partnership will provide research opportunities for outstanding students to collaborate with internationally known NIST scientists in the fields of building materials, structure, building environment, and fire science and engineering. The 8 undergraduate students will spend 10-12 weeks working one-on-one with NIST staff on selected projects that combine basic research with direct applications to problems of national importance.